U.S.-Germany Cooperative Research on Structure in ComplexityTheory

This award supports Professors Lane and Edith Hemaspaandra, of the University of Rochester and Le Moyne College, respectively, to collaborate in computer science with Professor Gerd Wechsung of the Friedrich Schiller University of Jena, Germany. Together they will study several topics of current interest in computational complexity theory These include (1) rigorous studies of the effect of query order on complexity (i.e., whether and when the order of access to multiple information sources matters) and (2) certificate complexity (calculating the conditions that control the size of classes of sets which always have acceptance certificates that can be easily computed.) The U.S. and German participants in this collaboration bring to bear complementary strengths in the creative theoretical aspects and the rigorous mathematical aspects of computational complexity. The joint effort of these talented and prolific researchers should produce significant contributions to the study of structural aspects of complexity theory. Results will have implications in many aspects of computer and information science.